Organization of the 1997 Organic Thin Films for Photonics Applications Topical Meeting, to be held October 12-15, 1997, Long Beach, CA

9708127 Hennage NSF will provide travel support for students and junior faculty to attend the 1997 Organic Thin Films for Photonics Applications Topical Meeting. Joint American Chemical Society/Optical Society of America sponsorship will provide an inter-disciplinary forum for the presentation and discussion of new and previously unpublished results on advanced organic thin film materials with potential applications for photonics. ***